Symmetry-Breaking and Pattern Formation, with Applications to Parametrically Excited Surface Waves

9972059
Silber

The research project addresses the formation of free surface standing wave
patterns that arise when a container of fluid is vibrated vertically. This
well-studied hydrodynamic problem represents a model system for
studying pattern formation via symmetry-breaking parametric instability.
Understanding the dynamical mechanism for the experimentally observed
"superlattice patterns" is a primary focus for much of the research. These
two-dimensional wave patterns are characterized as being spatially-
periodic, with structure on two disparate length scales. The analysis will
be based on methods of equivariant bifurcation theory. The role of normal
form symmetries, and spatial/temporal resonance in the pattern selection
process will be elucidated by the analysis. Aspects of the research project
will contribute to our understanding of the effects of weak external
symmetry breaking on equivariant bifurcation problems. It will also
develop applications of some recent mathematical results on bifurcation of
periodic solutions with spatio-temporal symmetries. Finally, possible
symmetry-based methods for controlling spatio-temporal patterns will be
investigated.

The research project is aimed at a basic mathematical understanding of a
variety of experimental observations of exotic wave patterns on the
surface of a vibrated liquid. The results are expected to carry over to other
pattern-forming systems of technological interest, such as magnetic fluids
and nonlinear optical systems. The research will contribute to our basic
understanding of the effects of vibration on nonlinear systems with many
degrees of freedom; vibration that may be detrimental because it causes
instability or useful because it suppresses instability. The research will
also address control of the nonlinear pattern-formation process in certain
hydrodynamic, nonlinear optical and chemical reaction-diffusion systems.
The training of graduate students in applied mathematics is an integral part
of the research project.